SBIR Phase I: Variable Azimuth Wave-Equation Imaging (VAWEM)

This Small Business Innovation Research (SBIR) Phase I project proposes to investigate the feasibility of a key technology designed to enhance seismic resolution and imaging of deep-water complex geologic structures by using variable azimuth wave-equation migration (VAWEM). VAWEM will provide much greater resolution and accuracy than what can be accomplished today for towed marine streamer data, and at significantly less computational cost.

This advanced imaging methodology will improve success rate and cost effectiveness for new field discoveries and increase recovery efficiency for the development of existing fields. This technology does not exist in the industry, it is a fundamental revolutionary advance, and is a necessary building block in any seismic processing system that images 3-D prestack data using wave-equation methods for imaging deep water, under-salt complex geological structures which are the focus of modern oil- and-gas exploration.